Finding NEO: asteroids, lightcurves, and amateur astronomers

This Communicating Research to Public Audiences proposal is based on current NSF-funded research, AST 0607505, "Asteroid Satellites and Spins." Finding NEO (near-Earth Objects) proposes an 18-month-long project to develop on-line and museum traveling exhibit-module deliverables that provide users with both video vignettes of amateur astronomers engaged in NEO asteroid studies and at least three interactive game-like experiences on the science content and processes, specifically the analysis of "lightcurves," i.e., changes in light reflectivity off of spinning asteroids. The staff of the Space Science Institute will create these products in partnership with four small science museums around the country (2 in CO, NY, WI). The on-line material will be user-accessed via current astronomy web sites that already are popular, for example, www.spaceweathercenter.org. The videos and software will be made freely available for download. All materials will be both in English and Spanish.